Spring Topology and Dynamical Systems Conference 2004

Abstract

Award: DMS-0349862
Principal Investigator: Lex G. Oversteegen,
Alexander M. Blokh, John C. Mayer

The Department of Mathematics of the University of Alabama at
Birmingham proposes to host the Spring Topology and Dynamical
Systems Conference (STDC), March 25-27, 2004. The STDC
encompasses most of the areas of topology and of topological
approaches to dynamical systems. We expect the conference to
attract over 200 participants, nationally and internationally.
The intellectual merit of the proposed activity lies in the broad
and deep interaction among the participants. To ensure strong
and balanced representation in each of the areas central to the
conference, we propose to have four special sessions running in
parallel: Continuum Theory, Dynamical Systems, General and
Set-Theoretic Topology, and Geometric Topology. To promote unity
and interaction, there will be 12 invited talks of 25-minutes in
two parallel sessions, and 7 plenary talks of 50 minutes. Ample
opportunities for formal and informal interaction among
participants will be provided. This will include a session
devoted to the state of the arts in the conference areas, current
fruitful directions, and new opportunities.

The STDC conference brings together mathematicians and
mathematics students working in two core areas of mathematics:
topology and dynamical systems. The broader impact of the
proposed activity lies in the advancement of knowledge, including
education of students, through communication of recent results in
these two core areas. We expect that many of the invited talks
will emphasize interaction of the research agendas of the central
conference areas. Successful conferences in core areas are an
important part of mathematical infrastructure, supporting
research, training new mathematicians, and developing a
foundation for applications in related fields of mathematics and
science. Every effort will be made to provide for the substantial
participation of under-represented groups, graduate students, and
active researchers in these areas.